A Systems Approach to Decision Making Problems Involving Electric Load Forecasts

This work is aimed at the important area of large.scale system planning or decision.making under uncertainty. It is anticipated that, as result of this work, a comprehensive problem statement (or series of problem statements) will be produced that will be a guideline for re.orienting future research. This reorientation is expected to have a significant impact in attracting a new cadre of researchers to the problem who, through fresh insight, could provide a broad and useful perspective on the types of decision.making tools that would be useful in an environment where uncertainty is accounted for.